Dissertation Research: Hormonal Mediation of Behavior

Ms. Ann S. Oliver's dissertation research is a comparative field study of behavioral endocrinology in two species of fish that are simultaneous hermaphrodites. Spawning behavior depends upon size in one species, which is serially monogamous, and upon social status in the other species, which is permanently monogamous. The objective of this project is to complete hormone analysis necessary to test three hypotheses about the relationships between behaviors and the absolute levels and relative concentrations of circulating steroid hormones. Comparison of hormonal correlates of behavior in two species will allow generalizations about the influence of steroid hormones on hermaphrodite mating behavior. Analysis of the relationship among aggression, androgens, and size or social status will clarify the complex interaction of social and physiological factors regulating hermaphrodite mating systems. Timing and duration of hormone surges will be compared between species to examine physiological influences on the daily pattern of egg maturation and time of spawning. Ms. Oliver's physiological data will provide the basis for future hormone manipulations critical for testing theoretical concepts about the evolution and maintenance of hermaphroditism as a stable reproductive strategy.